Robotics Laboratory Project

This project enhances this institution's offerings in the areas of manufacturing, computer-aided design/computer-aided manufacturing (CAD/CAM) and robotics. The equipment funded by this award supports undergraduate mechanical engineering courses at the sophmore/junior level as well as advanced courses at the senior level. In particular, students learn both theoretical and practical aspects of: teach pendant control, computer interfacing, mechanical manipulation, off-line programming and simulation, and application of computer vision. The laboratory equipment includes: Rhino robots with tilt rotary carousel, belt conveyor, x-y table, software and other accessories, and, a computer vision system. Student interface is via IBM PC's. This award is being matched by an equal sum from the grantee.